SGER: An Affect-Sensitive, Anticipatory Control Framework for Human-Robot Cooperation

The project will investigate ways of making robots more user-friendly via an innovative approach whereby the robot will be able to recognized the affecting state of the interacting human and modify it's (robot's) own actions to make the human feel comfortable to work with the robot. Wearable biofeedback sensors will be used to measure a variety of physiological indices to infer the underlying affective human states.